Upgrade of a Time-Resolved Laser Prop/Probe Apparatus

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will enable the Department of Chemistry at the University of Oregon to upgrade a time-resolved laser pump/probe apparatus in the Shared Laser Facility (SLF). The new equipment will be used to perform time-resolved studies of solvent cage effects in organometallic radical chemistry, of nonequilibrium solvation dynamics, and one- and two-photon fluorescence spectroscopy of proteins.

Lasers can provide important information about chemical reactivity. Laser techniques may enable breakthroughs in our understanding of the properties of reactivity and non-reactivity of molecules.